Mathematical Sciences: Control Theory and Vector Field Systems

This project continues mathematical research into the modelling of physical systems by differential equations containing free functions, the controls. One means of analyzing such systems is the use of transforms, state feedback and coordinate change for example, to reduce the system to a linear one. This amounts to determining when a local basis of vector fields can be chosen which, in proper local coordinates, is linear. Although this can rarely be expected, the next most reasonable case would be bases which generate nilpotent or solvable Lie algebras. The project will continue work towards this end. Best results to date are possible when the free motion or uncontrolled part of the system is not present. Otherwise, major obstacles are presented due, primarily, to the large number of (inequivalent) nilpotent systems present even in low dimensions. Another, equally important, question is that of determining invariants of a system which will show whether or not related nilpotent or solvable Lie algebras can be expected. A second line of investigation will focus on certain transformations called contact maps. These are maps which are used to characterize jets and jet bundles of functions defined on higher dimensional Euclidean spaces. Differential operators may be defined in terms of jets and contact transformations. They provide a method for prolonging solutions. The basic problems faced in the development of this theory are two: a characterization of self-maps of jet bundles which are contact transformations and the construction of contact transformations which leave a given manifold invariant. While there are several fundamental results related to these questions due to Lie and Backlund, specific examples are needed. In addition, constructive methods for obtaining contact tranformations need to be developed. A final direction this research will follow concerns control system linearization via an extended feedback group, specifically, canonical forms for control systems which can be obtained via the feedback group will be sought.